Nitrogen-Fixation by Subterranean Termites in Forests

The objective of the proposed research is to determine how much nitrogen is fixed per unit land per year by two species of subterranean termites in coastal Virginia. Field and laboratory studies will be conducted over a three-year period to examine rates of nitrogen fixation as a function of temperature and wood nitrogen content and acidity. Seasonal changes in the relative proportions of workers, soldiers and immatures in termite nests will be examined along with nest density in order to determine the annual nitrogen contributions by termites to coastal forests. %%% Nitrogen fixation by termite bacteria may be an important source of nutrients in forests that are deficient in available nitrogen. The bacteria resident in the hindguts of termites can fix atmospheric molecular nitrogen into nitrogen compounds that are incorporated into termite tissues. When termites die or excrete nitrogenous wastes, free-living bacteria metabolize the organic nitrogen into ammonia and nitrates which are then available as nutrients for plants. However, the quantity of nitrogen fixed by termite bacteria is unknown, because many factors influence rates of nitrogen fixation. These factors include temperature and the nitrogen content and acidity of the wood eaten by termites. Also, different species of termites and different termites castes such as workers, soldiers and immatures vary in the amount of nitrogen they fix.